Computer Science Approaches to Finance Problems: Computational Complexity and Efficient Algorithms

PI: Ming-Yang Kao
Institution: Yale University
Proposal Number: 9988376

In scientific disciplines, significant issues are sometimes assumed
away by overmodeling, which results in lost knowledge. Such
overmodeling is often caused by analytical or computational difficulty
of the issues involved. By shifting the existing balance among
modeling, analytical, and computational components of the current
solution to an issue, one inevitably discovers new technologies.
Motivated by this research philosophy, this project has three general
themes. The first is to explore trade-offs between modeling and
computation in finance with emphasis on advancing computational
technologies for practical and theoretical finance problems. The
second is to develop finance ideas to help solve computer science
problems. The third is to formulate novel finance problems which
break away from traditional paradigms of finance research.

This project pursues these three themes in five interrelated areas of
computational finance: (1) market modeling, (2) investment and trading
algorithms, (3) risk management, (4) market index design, and (5)
auctions.

For the area of market modeling, the main goal is to study short-term
predictability of stock markets using agent-based approaches. The
models established will be used to test algorithms developed for other
parts of the project.

For the area of investment and trading algorithms, this project
focuses on two fundamental issues: (1) what sorts of information can
be used to enhance the performance of a portfolio and (2) how to
measure the performance of investment and trading algorithms. Results
in this area can be useful for long-term investors such as those who
save for retirement.

For the area of risk management, this project investigates two basic
issues: (1) how to assess the risk of a portfolio of assets and (2)
how to design optimal portfolios which meet security requirements.
Results in this area may be used to help institutional investors
detect and minimize unwanted risks.

For the area of market index design, novel optimization problems will
be formulated to help design portfolios which are easier to manage
than popular market indices but can track or outperform the indices.

For the area of auctions, the primary goal is to use auction
algorithms to design solutions to computer science problems. To this
end, the project will identify auction primitives which can be used to
construct complicated auction mechanisms.